Mathematical Sciences: Input/Output Equations and Nonlinear Realizability

This project will study the relations between nonlinear realizability and the existence of input-output equations. This will include realizability by nonsingular rational systems, analytic realizability, efficient algorithms, and relationships between realizability and integral input-output equations. Techniques borrowed from algebraic and differential geometry will be often used. These studies address fundamental questions in the modeling of control of mechanical, electrical, and biological systems.